SGER: Domestic Policy Regimes and the Changing Arctic

Jones
0219543

This exploratory syudy aims to assess the relevance of two perspectives policy dynamics and policy learning for understanding domestic policy changes for the Arctic. Specifically, the political science team will assess whether the construction of a Canadian database capable of monitoring public change relevant to the Canadian North is feasible and whether a policy learning prspective can be applied to the study will consist of examination of the potential quantitative data sources for Arctic policy monitoring in Canada and some field travel to gain understanding of policy networks in the Canadian setting.